Parallelize a Global Atmospheric Chemical Tracer Model (Postdoctoral Research Associateship in Computational Science and Engineering)

Demmel 9404748 We propose to parallelize a global atmospheric chemical tracer model. This is part of a larger Earth Systems Model (ESM) being built which will include a atmospheric chemistry. The ESM will be used for global warming and ozone depletion studies, among others.